Innovative Approaches to Teaching Microbiology

9452289 McClain This project will strengthen the instructional quality of one biology and three microbiology classes and laboratories by incorporating current innovations and technology. The goal of this curricular enhancement project is to improve the scientific literacy of students. Cooperative group-learning activities will be incorporated into the lab and classroom assignments. This collegial approach will be facilitated by the use of computer workstations that will be utilized by groups of 5-7 students. A microscope/video system will be used to provide more effective instruction concerning the proper usage of microscopes. This system will enable faculty to illustrate, for the class as a whole, important techniques for understanding and mastering skills necessary for proper and effective microscope usage. A laser disk player/TV monitor system will also be utilized to fully integrate a system of study and reference during lecture and group time. This pedagogy incorporates the three elements of an exemplary biology program: an investigative laboratory; use of biological techniques; and use of computers. It also accommodates a variety of learning and teaching strategies, fosters critical thinking and problem solving, includes collaborative learning and fosters active student participation.